Enhancement of the Undergraduate Biomedical Engineering Curriculum at Yale University

PROPOSAL NO.: 0230646
PRINCIPAL INVESTIGATOR: Saltzman, William
INSTITUTION NAME: Yale University
TITLE: Enhancement of the Undergraduate Biomedical Engineering Curriculum at Yale University

Abstract

The project will reformulate the biomedical engineering undergraduate curriculum at Yale by emphasizing a) faculty involvement with students at all levels throughout the 4 year B.S. program; b) integration of presentation of knowledge through laboratory, lecture, and electronic media; and c) definition of selected areas of emphasis that represent strengths of the Yale research faculty and areas of industrial importance. We propose a core curriculum that presents the core science of BME as well as specialized tracks that provide advanced training in our areas of emphasis: biomedical imaging, biomechanics, and biomolecular engineering. We will implement this proposal in two phases. During the 12-month planning phase, we will offer two new courses (one each at the freshman and senior-levels) and implement new junior-level laboratory modules that incorporate concepts from molecular and cellular biology. We will also explore new concepts and develop a coordinated plan for the second phase, beyond the 12-month planning period, which will include reformulation of the core BME courses and the addition of new advanced level electives in our areas of emphasis.